Data Communication and Networks Course for Computer Science and Software Engineering-Hypertext Approach

9354730 Zheng A recent survey conducted by the author indicated the need for a data communications and networks text covering fundamental theory and new technologies along with software project topics in a multiplatform distributed environment for computer science and software engineering students in undergraduate level. Traditional textbooks do not take advantage of recent development in multimedia and hypertext technologies. Through the use of these technologies students are able to interact with computers in the pursuit of knowledge at their own rate, following their own particular interests within the field. Various media, digitized still and motion images, and sounds, provide a more complete and lasting access to the subject matter. The techniques of hypertext and multimedia are just beginning to be realized in education. This project develops a text in this format as a prototype for texts. This project also develops a cost-effective network laboratory prototype, to provide software and supplementary teaching materials including a question set and project topics with sample solutions in a multiplatform environment. The goal of the curriculum is to engage students actively in the learning process and, through the projects developed, to promote critical thinking, problem solving skills, and creativity. ***y